ITR/AP+IM: Poseidon - Rapid Real-Time Interdisciplinary Ocean Forecasting: Adaptive Sampling and Adaptive Modeling in a Distributed Environment

EIA-0121263
Patrikalakis, Nicholas M
MIT

ITR/AP+IM: Poseidon- Rapid Real-Time Interdisciplinary Ocean Forecasting: Adaptive Sampling and Adaptive Modeling in a Distributed Environment

Progress in understanding the complex coupled physics, biology and acoustics of the oceans is accelerating via research on realistic nonlinear multiscale interdisciplinary processes, interactions and variabilities.

To cope with the variabilities of such economies in space and time, dynamical model structures must evolve during the prediction, i.e., by adaptive modeling. The objective of this project is to enable by an effective union of information technologies and ocean sciences, efficient mulitscale interdisciplinary ocean prediction with real-time objective adaptive sampling, assimilation of multiple streams of interdisciplinary data, and autonomous adaptive modeling